Dual Polarizing Microscopy for Undergraduate Teaching Program

The Department of Geosciences at Elizabeth City State University will purchase a dual ocular polarizing microscope with television monitor and ancillary equipment. This instrument will be used primarily to improve instruction in three upper-division geology courses: mineralogy, optical mineralogy, and petrology. It will allow instructors to demonstrate the properties of both coarse and fine grained mineral specimens to the classes. It also will allow the instructor and student to observe specimens simultaneously to ensure that the student correctly interprets the various features of the specimens. Elizabeth City State University is one of three historically black institutions offering an undergraduate degree in geology. The NSF grant of $5,550.00 will be matched by an equivalent amount from the university.